RUI: Coronal Heating Studies at the 1994 Eclipse

The PI proposes to study the heating of the solar corona by observing the coronal oscillation spectrum at the total solar eclipse of 3 November 1994, a favorable solar eclipse in terms of duration, sky clarity, and weather forecasts. The observations provide tests of a mechanism to explain the heating of the solar corona via Alfven waves. The heating takes place in the region of formation of the solar wind. Prior observations we made at the total solar eclipses of 1980 and 1983 indicate excess power in the Fourier transforms between 0.5 and 2 Hz. The expedition was clouded out of the observing the 1 July 1991 total solar eclipse. The proposed new experiment improves on the prior observations in a variety of ways, including improved digitization and data recording, improved image acquisition during the brief period of totality, and a major expansion of the frequency range under observation through greatly improved tracking. Studies of the solar corona at eclipses have been a major part of the success of the Astronomy Department at Williams College in attracting and training students. Undergraduate students have been intimately connected with our prior eclipse expeditions and the associated data reduction and analysis, and this proposal will enable the PI to continue the active involvement of students.